Use of Multimedia in an Introductory Chemistry Course for Student Analysis of Real-Life Situations

9354637 Joesten The laboratory of introductory college science courses provides an excellent opportunity to improve both the attitudes and scientific literacy of liberal arts students and prospective teachers. This project is developing six ten-minute videodisc programs with associated HyperCard stacks that add a "real-life" component to the laboratory experience in an introductory chemistry course for nonscience majors. Since elementary school teachers will play a key role in increasing scientific literacy and in changing public attitudes toward science, the six videodisc programs include elementary classroom scenes where elementary students are doing exploratory activities based on the experiment the college student has just completed. This provides both prospective teachers and other liberal arts students an opportunity to look for misconceptions and science content errors. Students view the appropriate videodisc program at the end of the laboratory period, and their responses to the questions raised in the program are an integral part of the experimental writeup. After class testing, the videodisc programs with accompanying HyperCard stacks will be transferred to CD ROM discs to allow for individual viewing by students when they are preparing laboratory reports. The interactive videodisc and CD ROM programs will provide an effective way to add a component missing from all introductory college chemistry laboratory courses - an immediate illustration of applying the chemical principles of a specific experiment to a real-life situation.